SPLASH 2013 Travel Support

This award will support student travel to The Fourth Annual ACM Conference on Systems, Programming, Languages and Applications: Software for Humanity (SPLASH 2013). The conference is being held in Indianapolis, Indiana during October 26-31, 2013. SPLASH includes OOPSLA, one of the flagship ACM SIGPLAN conferences, as well as many co-located events: Onward!, Wavefront, the Dynamic Languages Symposium, SPLASH-E (Education), the International Conference on Generative Programming: Concepts & Experiences, the International Conference on Software Language Engineering. SPLASH also includes a program of tutorials, posters, demonstrations, a Doctoral Symposium, and an ACM SIGPLAN Student Research Competition. Supporting student travel to attend professional conferences and workshops is a very important mission of the NSF. The funding provided will enable broader student participation, especially by those without adequate support at their home institution, and will help build the next generation of programming language and software engineering researchers.